Spatial Distribution of Antarctic Surface Ultraviolet Radiation from Satellite and In-Situ Measurements

With the appearance of depleted springtime ozone abundances over Antarctica there has been much concern over the impact of enhanced ultraviolet radiation on the region's ecology. Dr. Gautier proposes to develop a method for mapping biologically active ultraviolet (UV-B) and photosynthetically active radiation (PAR) falling on the Antarctic and the surrounding Southern Ocean. Satellite remote sensing techniques, validated with surface measurements from NSF's UV monitoring program at specific Antarctic sites, will extend the geographical mapping of ozone and UV radiation over Antarctica. The project will place special emphasis on the period of springtime ozone depletion. Atmospheric data will be collected to develop a thorough understanding of solar radiation transfer in the Antarctic earth-atmosphere system. Moreover, this information will be used to modify for high-latitude work the satellite remote sensing algorithms already developed by Dr. Gautier for surface radiation budget studies at lower latitudes. The results of this project will be maps of surface UV-B and PAR irradiance having 50 kilometer resolution which are comparable to maps of stratospheric ozone abundance using satellite remote sensing.